SBIR Phase I: Bioengineering probiotic yeast to mitigate methane emissions from cattle

This Small Business Innovation Research (SBIR) Phase I project develops a technology that could drastically reduce the impact of livestock production on the environment. Methane emissions from livestock account for over 10% of global greenhouse gas emissions, which must be reduced significantly in order to meet climate change reduction targets. Simultaneously, profit margins in beef and dairy farming are slim, leaving farmers unable to adopt climate-friendly practices that are too costly. This product could increase the profitability of cattle farming while playing a key role in achieving net zero emissions from the food system.

This team develops enzymes to be secreted from a probiotic yeast to eliminate methane emissions from cattle. The company has previously identified a set of enzymes that restrict methane production in the rumen of cattle. This project will further develop and package these enzymes in a probiotic yeast strain which has already been shown to increase milk yield by over 5%, thereby offering a dual benefit to the farmers. Project success requires a) screening an enzyme library to identify lead candidates for reduction of rumen methane, b) optimizing enzymes for further methane reduction, and c) demonstrating enzyme secretion and cost-efficient enzyme delivery by the probiotic yeast. Completion of these objectives will yield a product that will decrease cattle methane emissions by a minimum of 30%, and potentially by up to 98%, while simultaneously improving the health and productivity of cattle.